Minority Graduate Student Travel Award

9320342 Diaz This is a travel award for an exploratory visit to the Autonomous University of Barcelona, Spain and to attend the XI International Symposium on Biogeochemistry in Salamanca, Spain. This travel will provide opportunities to meet faculty and examine facilities at the University of Barcelona. The purpose of the visits is to facilitate discussion of potential postdoctoral training, and tentative planning of scientific research to be pursued. Professor Jordi Mas of the University of Barcelona has invited her to visit his laboratory for this purpose, and in ultimately serving as her mentor. ***